Integration of Computers

The goals of this project are to improve students' understanding of chemistry concepts, improve retention rates, increase student enrollment in chemistry, and provide a modern laboratory experience by combining computer-interfaced sensor technology and laboratory-based Internet research within a collaborative-learning laboratory model. The ability to collect and analyze data using computers, query chemical databases on the Internet, and visualize chemical phenomena provides powerful support for more open-ended collaborative laboratory investigations. The project uses 18 IBM compatible multimedia computers plus one file server equipped with Internet and intranet networking hardware and software in the chemistry laboratory. The computer network is available to students through connections on and off campus for consulting with other students around the world, visualizing molecular models and mechanism animations, and researching chemical data bases for answers to their independent questions. Analog to digital converters for each computer allow for experimental data to be collected and analyzed in real time. Students improve their chemistry and communication skills as they collaborate in the laboratory setting and as they integrate chemical research, prose, and laboratory investigations into their assignments.